Growth Proteins and Synaptic Plasticity

Abstract for Lay Audience -Routtenberg

Perhaps the most unnerving experiences in our intellectual lives is
the frustration of forgetting. It is the over-arching view of the proposed
research that 'why we forget' has to do with the faulty chemistry of the
brain connections that form the memory network. Indeed we have recently
discovered using a model system of brain memory that we can prevent memory
storage and its retrieval. Then, by giving a drug that activates a
signalling pathway that our laboratory described, we can reactivate the
memory. Put another way, the key that turns on memory and its retrieval
may be like that used in the car's ignition. What we have done is moved to
the next stage and 'hot-wired' memory processes, by-passing the initial
switch. This pathway is thus critical to memory formation and retrieval.
Our studies employ gene targeting methods in transgenic mice to
modify the switches and signalling mechanisms (gene products or proteins,
one and all) that regulate both the chemistry of the brain connections and
as a consequence the memory storage process. We study the most widely used
physiological model of memory, long-term potentiation, which monitors the
events that occur at the synapse at the time when model memories are being
stored. We complement the gene targeting with pharmacological tools that
allow us to confirm with converging lines of evidence the identified
sequence of events involved in the storage of information. Since gene
manipulation is not feasible in humans, this complimentary approach
provides the basis for drug discovery in the context of current molecular
biological technologies and suggest novel strategies in the war against
cognitive and memory disorders.